MPWG: School-based S.M.A.R.T. (Science, Math and Relevant Technology)

9453748 Bendet School-based SMART is an institutionalized model program designed to encourage and educate elementary school-age girls to understand that mathematics and science are important and relevant to them. SMART provides girls with active instructional and motivational support in pursuing education and employment opportunities in these fields. It enhances the existent math and science curricula by providing hands-on activities in a single-sex environment that encourages girls to take risks and learn by doing. Every 4th and 5th grade girl in selected schools is involved in the program, thus eliminating the self-selection factor inherent in other after-school models. School-based SMART proposes to give young female students positive and empowering experiences with science and mathematics within the school setting. The SMART model and curriculum give girls the confidence to assume positions of leadership in their co-educational classes. Additionally, heightened administrative awareness of gender equity issues, in relation to science and mathematics, will be achieved as a result of the integration of the SMART model. Teacher in-service training and family education are significant components included in the project's design. The project includes an outside evaluation and plans for national dissemination through Girls Incorporated affiliates. ***